Quantum Foundations in the Light of Quantum Information

Project Summary
The problem of how to make sense of the non-classical probabilistic behavior of
quantum systems was the subject of an unresolved dispute between Einstein and Bohr.
The opposition between their opposing philosophical views has provided the tension for
an ongoing debate among physicists and philosophers of physics about the conceptual
significance of the transition from classical to quantum mechanics, centering on a measurement
problem in the foundations of the theory. The 1990s saw the development of
a quantum theory of information, prompted by the realization that certain nonclassical
features of quantum systems could be exploited to perform information-processing tasks
that would be impossible in a Newtonian world. This has led to an explosion of interest
in theoretical and practical applications of quantum computation and quantum cryptography,
and a reconsideration of the foundational problems underlying the Bohr-Einstein
debate.
Intellectual Merit: The PI has published a number of recent papers on these issues,
in particular a paper (jointly authored with Rob Clifton and Hans Halvorson) showing
that one can derive the basic features of a quantum-theoretic description of physical systems
from three information-theoretic constraints. The research project involves working
out the details of an information-theoretic interpretation of quantum mechanics in
the light of the Clifton-Bub-Halvorson result. A core feature is to split the measurement
problem into a problem about truth and a problem about probability, and to set aside the
truth problem. The PIs solution to the probability problem involves showing (i) that one
can derive from quantum mechanics the conditions for the existence of measuring instruments
as sources of classical information, and the existence of information-gatherers
with the ability to use measuring instruments to apply and test quantum mechanics, and
(ii) that the generalized transition probabilities of the theory can be given a subjective
Bayesian interpretation without solving the truth problem of measurement. The PI argues
that the possible solutions to the truth problem are well understood, and proposes
to show that any such solution produces a modification of quantum mechanics that is
explanatorily and methodologically inferior to the standard theory, particularly with respect
to accounting for the new results in quantum computation and quantum cryptography.
Broader Impacts: The PI proposes to write a book developing these ideas accessible
to scientists who work on issues in quantum information and computation, to
philosophers of science who work on questions of interpretation, and to a wider group
of readers interested in developments in the foundations of physics. The PI has been
invited to present papers on topics related to the above information-theoretic interpretation
of quantum mechanics at various conferences, and to contribute articles to several
Handbooks and Encyclopedias. A number of recent papers and PhD dissertations discuss
the Clifton-Bub-Halvorson result and its implications, and three of the PIs PhD
students will shortly be working on dissertations on various aspects of quantum information.
The results of this research will be incorporated in an undergraduate course on
philosophy of physics (Phil 354) directed at physics students. The PI will also disseminate
information on the project through an annual "new directions in the foundations of physics
conference," and through online archives.
1